Mathematical Sciences: Geometrical Stability Theory

Steven A. Buechler's research project is in stability theory, a subfield of model theory. In recent years several general model- theoretic problems have been systematically approached via the stability hierarchy. Even though the problem itself may not involve stability-theoretic notions, considering separately the cases: omega-stable, superstable, etc., brings into play a mass of technical machinery. Such is the case with Vaught's conjecture, which was proved by Shelah for omega-stable theories. The next step is to consider all superstable theories, but this has proven to be too difficult. Buechler will approach this problem by separating the superstable theories according to their "geometrical" properties. The first case to consider is when the universe has Shelah rank 1. Buechler has already made progress on this problem.